SGER: Rapid Identification, Enumeration, and Characterization of Mycobacteria and Nocardioforms in Environmental Samples Using BioMEMS

0116912 Oerther The objective of this research is to develop culture-based Biomedical Micro-Electro-Mechanical System (BioMEMS) chips to identify, enumerate, and characterize microorganisms in environmental samples. The specific objectives of this research are: (1) developing fundamental science to establish the novel concept of scaled-down, culture-based identification and quantification of Gram positive, mycolic acid containing Actinomycetes (e. g. mycobacteria and nocardioforms), and (2) demonstrating scaled-down, microbial culturing using a proof-of-concept BioMEMS chip device. This research could eventually lead to a rapid, cost-efficient technology for microbial monitoring of environmental samples. ***